Integrable differential and functional equations, chracterization problems of the Abelian varieties

Abstract

Award: DMS-0405519
Principal Investigator: Igor Krichever

The main objective of the present project is further development
of the algebro-geometric theory of soliton equations aimed at the
integration of non-linear equations, models of solid state
physics, and models of quantum field theories. The immediate goal
is to develop a theory of zero-curvature and Lax equations on
variable algebraic curves, which can be instrumental in
construction of new integrable models and in the investigations
of geometry of moduli spaces of holomorphic vector bundles.
Particular attention will be paid to the Hamiltonian theory of
the discrete isomonodromy equations and the B\"acklund
transformations. Efforts will be devoted to functional equations
for the Baker-Akhiezer functions and their application to the
geometry of the Abelian varieties. Particular attention will be
paid to the characterization problem of the Prim varieties.

Classical algebraic geometry, inseparably connected with the
names of Abel, Riemann, Weierstrass, Poincare, Clebsch, Jacobi
and other outstanding mathematicians of the XIX-th century has
been mainly an analytical theory. In the last century it was
enriched by the methods and ideas of topology, commutative
algebra and has the authority of one of the most fundamental
mathematical disciplines. The traditional eclectism (in the best
sense of the word) of algebraic geometry has always been a source
of its numerous applications to other branches of
mathematics. The role of algebraic geometry as ``an applied
science" has grown immensely in the last 20-25 years, when its
new applications to the problems of non-linear equations and
quantum field theory were found. The discovery of solitons in the
seventies of the previous century has changed once and forever
the role which integrable systems play in the development of
mathematics and physics. The soliton theory is applicable to
equations which possess the property of remarkable
universality. They arise in the description of the most diverse
phenomena in plasma physics, the theory of elementary particles,
the theory of superconductivity and in non-linear optics. This
ubiquity of integrable systems together with the beautiful
structures that underlie them has led to ever-growing interest in
this area. Geometry and algebraic geometry, functional equations
and special functions, Lie algebras and groups all come together
in the modern theory of integrable systems. This unique
combination of seemingly unrelated branches of mathematics and
physics provides an opportunity to create new interdisciplinary
education models.